Enhancement of the Chemistry Laboratory Curriculum using Computer Data Acquisition

9350682 Bornhorst The project will improve the instructional program by the establishment of a computer data-acquisition laboratory, consisting of sixteen personal computers and SciTech data acquisition interfaces, to make all of the electronic measurements required in a lower division college chemistry class. The laboratory systems will be tied to the existing department and campus Novell network by upgraded NetWare 3.11 software and a dedicated 486 file server. Experiments will be designed to enhance discovery exercises to enable students to investigate phenomena and perform calculations rapidly and transparently to look for trends and inconsistencies in experimental data to shift the focus to one of exploration. The emphasis of the laboratory will be to improve laboratory skills, learn chemical concepts, design experimental procedures, experiment like a scientist, and produce meaningful results and reports. ***y